Prokaryotic Diversity -- An Organismal Approach

9413235 Whitman This award supports an integrated, multidisciplinary training program for graduate and undergraduate students with a focus on microbial diversity. The research programs of the 22 participating faculty cover a wide range of problems from identification and isolation of new organisms to analysis of genetic and biochemical mechanisms at the molecular level. The faculty group come from the departments of biochemistry, entomology, marine science, microbiology, and plant pathology. Training arrangements include existing courses, a new seminar program, a new yearly retreat, and a new summer workshop that will focus in depth on two different organisms each summer. The workshop will involve students and faculty from across the nation, and is expected to have a national impact on training of the next generation of microbial researchers. This award is also being supported by the Metabolic Biochemistry Program. ***